Cocos: Island of Sharks

9725449 Apsell The NOVA Large-format Film unit of the WGBH Educational Foundation, in conjunction with the New England Aquarium, is producing a large format film about Cocos Island, a small, uninhabited island off the coast of Costa Rica that has not yet been affected by human activity. The waters around Cocos Island contain an extraordinary abundance of sharks, rays, tuna, marlins, swordfish, and other pelagic fishes, thanks to nearby upwellings of cold, nutrient-rich water that create a rich food source. The film will focus on the physical oceanography and behavioral marine ecology of Cocos Island, highlighting the animal behavior and interactions of the wide diversity of marine life. Executive Producer will be Paula Apsell, head of the WGBH science unit and Executive Producer of NOVA. Susanne Simpson, executive producer for NOVA Large-format Films will as a senior producer. Howard Hall Productions will produce and direct the film. Howard Hall will be director/producer, and Michele Hall will serve as producer. The Halls are experts in the field of marine natural history filmmaking and are world-renowned for their television programs on such series as National Geographic and Nature. They worked in the large format medium as producer/directors of Into the Deep. Joseph Levine, a marine biologist who has written both science textbooks and television scripts, will be the writer. William Spitzer, Associate Director for Education at the New England Aquarium, will be responsible for the educational outreach materials.